Disorder in Crystals and Mesophases

The objective of this project is to explore disorder introduced in crystalline and mesophase states of linear macromolecules and small molecule model compounds by conformational, large-amplitude motion. Better understanding of this topic will enable us to better manage such important technological processes as the improvement of materials performance by annealing, large-scale deformation on drawing and rolling, and the design of new polymeric materials with specific properties. The central technique used in this project is the thermal analysis for evaluation of the degree of disorder (entropy). A special Advanced THermal Analysis System (ATHAS), developed over the years, permits the establishment of the thermal properties of fully ordered solids as a vibration-only reference state, as well as fully disordered solid (glassy) and liquid reference states. The deviations from these references states are interpreted in terms of mobile disorder (mesophases) or rigid disorder (mesophase glasses or rigid amorphous fraction). On a microscopic level the disorder and motion are then analyzed in detail by solid state NMR, X-ray diffraction, neutron scattering, optical and atomic force microscopy. The experimental results are compared to molecular dynamics simulations carried out on supercomputers. Typical materials to be analyzed are: nylons and proteins, stiff-chain polymers, partially and fully fluorinated short-chain and long-chain molecules, tetraalkylammonium salts, and mesophase polymers.